Taxonomic and Life History Correlates of Rarity in the Flora of the United States and Canada

9726456 Schwartz Knowledge about the factors controlling plant rarity are critical to successful conservation. This grant from the Division of Environmental Biology will utilize the Nature Conservancy Natural Heritage Data Base on plants of the United States and Canada to make broad generalizations about the characteristics of rare plants. Using statistical techniques, it will be determined if rarity is correlated with: ( a) life history attributes, (b) taxonomic affiliation, and c) phylogenetic lineage. This research focuses on discerning broad patterns of rarity first, and then refines the focus down to finer scales (ecological, geographical, taxonomic) in order to determine which patterns observed at the broad scale remain consistent across scales.